Workshop on Mathematical Biology

Wollkind 9703489 The investigator and his colleagues organize a three day Workshop on mathematical biology at Washington State University. The workshop is interdisciplinary and should be a focal point for the meeting of theoretical and experimental scientists of numerous backgrounds, especially from the Pacific Northwest region. An important emphasis is attracting young scientists to attend the workshop, and providing them a fertile ground for open communication with senior scientists on topics at the cutting edge of theoretical and mathematical biology. Because of the geographical location, young scientists from eastern Washington, Idaho, and Montana very rarely get such opportunities for open discussions with experienced researchers. Similar workshops have been held regularly since 1991. In these workshops, topics have ranged from developmental biology and medicine to ecology and epidemiology. In many instances, the informal contacts made at these workshops proved valuable in forming new research collaborations. There has been a recent surge of interest in the use of quantitative mathematical approaches to understand better the exceedingly complex phenomena exhibited by living organisms. To further this goal, the investigator and colleagues organize a workshop in mathematical biology. The workshop is interdisciplinary, attracting researchers with both theoretical (mathematicians, geneticists , physicists, physical chemists) and experimental (biologists, biochemists, epidemiologists, ecologists) backgrounds. Contributed papers and discussion focus on ways in which quantitative, theoretical, and experimental methods can be combined to augment each other in an effort to explain more fully specific problems arising from areas such as developmental biology, medicine, ecology, and epidemiology. An important emphasis is attracting young scientists (recent Ph.D.'s and graduate students) to attend the workshop, and in providing them a fertile ground for direct communication with senior scientists on topics at the cutting edge of theoretical and mathematical biology. Given their geographical location, young scientists from eastern Washington, Idaho, and Montana very rarely get such opportunities for open discussions with experienced researchers. Similar workshops have been held regularly since 1991. In many instances, the informal contacts made at these workshops have proved valuable in forming new research collaborations.